Multispectral Tomosynthesis Imaging: Mathematical Models, Algorithms and Software

This project focuses on the development of computational methods for
tomosynthesis breast image reconstruction, a technique used to
reconstruct 3-dimensional images using slightly modified versions of
conventional x-ray systems. The mathematical models addressed in this
project are difficult ill-posed inverse problems; computed solutions
are very sensitive to errors in the data, and implementation for large
scale 3-dimensional images is nontrivial. All previous breast
tomosynthesis image reconstruction algorithms use a simplified, but
incorrect assumption that the source x-ray beam is comprised of
photons with a constant energy; that is, the x-ray beam is assumed to
be monoenergetic. The simplified monoenergetic assumption results in
a linear mathematical model. This project uses the physically
correct, and hence more accurate, assumption that the x-ray beam is
polyenergetic. The resulting mathematical model is nonlinear,
providing great challenges to the development and analysis of
mathematical models, as well as for the development of computational
methods. However, as this project reveals, the nonlinear model allows
for reconstructing images with substantially fewer artifacts than the
linear model. Moreover, the nonlinear model can incorporate
parameterizations to allow for explicit decomposition of the breast
into distinct materials, such as, glandular tissue, adipose tissue,
calcifications, and iodinated contrast agents, thereby providing
improved diagnostic information.

In the US, over 200,000 women are diagnosed with breast cancer every
year, but there is a 97% five-year survival rate if the cancer is
localized, and if it is discovered before it spreads to other parts of
the body. Therefore, improved imaging techniques that help to detect
and diagnose breast cancer early can have a profound impact on the
healthcare of women. The research in this project focuses on
tomosynthesis imaging, which just received FDA approval for clinical
use in 2011, because it has the potential to provide substantially
better screening capabilities than mammography. The new mathematical
and computational approaches developed in this work are designed to
unlock the potentially transformative benefits of tomosynthesis for
breast cancer screening, providing significantly better diagnostic
information to physicians. In addition to its application to breast
cancer screening, tomosynthesis, in its whole-body implementation can
be used for many other applications where standard x-ray and CT are
used, such as chest imaging for detection of lung nodules, as well as
non-medical imaging applications such as nuclear waste inspections and
explosive detection. Thus, advances in computational methods for this
application can have a very broad impact in the imaging field.
Collaborations between researchers in Mathematics and Computer Science
and researchers in the Department of Radiology and Imaging Sciences
and Winship Cancer Institute at Emory University facilitates
transitioning new software to clinical use.